Quantum Shot Noise and Electron Correlations in Nanostructures

w:\awards\awards96\num.doc 9701427 Prober This experimental research project focuses on electron noise and correlations in phase-coherent nanostructures. These studies will explore how electrons interact with their environment and will provide new information on the effects of electron phase and correlations. The noise studies will be carried in diffusive microbridges and quantum point contacts, in the frequency range of 0.1 to 20GHz. Phase coherent transport, sub-Poisson shot noise, and noise of superconductor-normal metal contacts may also be studied. Quantum limits on the spectral distribution of the noise with frequency will also be investigated. %%% This research project involves experimentally studies the origins and limits on noise in nanometer-scale electron devices used to detect radiation, emphasizing the 0.1 to 20GHz frequency range. Applications of such detectors include radio astronomy and radar receivers. The novelty of the research is in its focus on nanometer scale devices where quantum behavior of electrons becomes important. In these circumstances the understanding of noise effects is incomplete, both experimentally and theoretically. Results from this research may include unusual new effects or detector devices which may find new application in technology. This research project is interdisciplinary in nature and involves both graduate and undergraduate students who will be excellently trained to enter positions in industry, government or education. ***